Church-Based Process of Political Action Among Black Women ( REU Supplement )

Although religion and race are important factors influencing national political campaigns, it is only recently that political scientists have begun to build a theoretical and empirical base to investigate this topic. This study investigates the role of religious resources in the political mobilization of Black Americans. The recent presidential candidacy of the Reverend Jesse Jackson in 1984 and 1988, and the presidential candidacy of Pat Robertson in 1988, suggest accelerating involvement of church-based candidates and organizations in the political process. Because of the stronger centrality of religion in the lives of women, particular attention is placed on understanding the role of gender in a church-based political mobilization process. The major objective of the investigation is to construct a model of church- based political action among Black women and men which can be tested empirically. These political activities will range from church- centered campaigns to engaging in political protest activities. A church-based mobilization framework which draws upon social learning and resource mobilization theories should advance our knowledge and understanding of the dynamics which influence the political acitivism of religious Black women and men. The methodology for this project involves secondary analysis of data from the 1984 National Black Election Study (NBES), a telephone survey of the Black adult population. This study includes a pre- and post- election interview format. A total of 1,150 respondents were interviewed in the pre-election study and 871 were re-interviewed in the post-election study. The analysis of these data should increase substantially our understanding of the role of religious resources in the political mobilization of Black Americans.